Passive Smart Cementitious Composites for Dynamic Control Structures: Internal Timed Release of Chemicals for Self-Repair of Crack Damage

This proposal represents an investigation into the feasibility of developing a smart structural composite which has a self-healing capability whenever and wherever cracks are generated as a result of seismic overloads, cyclic loading or other mechanical or environmental loads. A major focus of this research will be on the timed release of chemicals from hollow fibers which results in (1) crack sealing, and (2) rebonding of debonded/ruptured fibers from the matrix. Candidate chemicals include adhesive, crystallizing rehydrater Xypex, and crosslinking or air curing polymer chemicals. Issues in specific fiber types acting as passive sensors and actuators, in a control system involving fiber/matrix interfacial bond, pseudo strain-hardening and crack width control, in repair mechanisms, real time process visualization, post-event properties, and structural control are addressed in this research.